Travel To Attend: 4th River Basin Management Conference August 13-16, 1986, Sao Paulo, Brazil

This award supports travel by an investigator to conferences on river basin management and water pollution research and control. At the conference on river basin management, he will present a paper on water quality issues in natural streams that are important to providing a suitable habitat for life-forms in the stream. At the International Association on Water Pollution Research and Control, he will initiate a task group activity relating to management of contaminants in aquatic systems.